Direct and Inverse Problems in Diffractive Optics Modeling

Over the next five years, the Principal Investigator proposes
to examine the mathematical issues and develop computational methods
for solving the following classes of direct and inverse problems
motivated by industrial applications: scattering and diffraction by periodic
structures (gratings), second harmonic generation in nonlinear diffractive
optics, and inverse and optimal design problems in diffractive optics.
The main topics of the proposed work are as follows:
-- Modeling, analysis, and computation of the diffraction by periodic
chiral structures and the scattering by a perturbed diffractive structure.
Modeling and design of electromagnetic resonances.
-- Well-posedness of the nonlinear Maxwell equations in second harmonic
generation. An interface least-squares finite element method for solving
the three-dimensional model problem. Structure (grating)
enhanced nonlinear optical effects. Effects of coatings on nonlinear
diffractive optics.
-- Optimal design of diffractive structures. A relaxation technique
(homogenization) and a local approach for the optimal design problem.
Uniqueness, stability, and regularity studies of the inverse diffraction
problem. Numerical solution of inverse and optimal design problems in
diffractive optics.

The recent enabling technologies of high-performance computing facilities
and microlithographic fabrication techniques have led to an explosion of
applications of diffraction in optics, establishing diffractive optics
as one of the most rapidly advancing areas of current research
in optical engineering. The practical applications and scientific developments
have driven the need for rigorous partial differential equation
models, mathematical analysis, and numerical algorithms
to describe the diffraction of complicated grating structures, to compute
electromagnetic fields and thus to predict the performance of a given
diffractive structure in linear, chiral, and nonlinear optical media, as well
as to carry out optimal design of new structures. The proposed research has
significant potential for evolving new mathematics and science and providing
industry with guidance to design and fabricate new optical devices.